Constructing an Enhanced Version of WordNet

WordNet is an important lexical resource for research in areas including NLP and AI. This project initiates the development of a radically enhanced version of WordNet. Constructing WordNet+ involves a novel combination of empirical methods: human annotation, corpus analysis, and machine learning. WordNet+ specifically addresses some of WordNet's limited ability to identify word senses, stemming from the sparsity of Boolean arcs among sets of synonymous words ("synsets"). First, quantified, oriented arcs are to be added among a core set of 5,000 synsets. These arcs reflect evocation--the extent to which the meaning of one synset brings to mind another. Following the selection of the core synsets, a random subset of 250,000 arcs are to be elicited from annotators. The annotators, trained and tested for inter- and intra-reliability, record the strength of their mental associations using a specially designed and tested interface. The remaining arcs are to be extrapolated from the manually obtained arcs using machine learning algorithms.

All results will be made available to the research community: the core concepts, the indirect co-occurrence matrices, and all available ratings. Given WordNet's past contributions to a number of diverse disciplines, the initial stages of the construction of this research tool should stimulate great interest and have a significant impact on related work.